CAREER: Bridging dynamical and statistical models of neural circuits -- a mechanistic approach to multi-spike synchrony

Questions of neural synchrony -- correlations in cell-to-cell spiking -- have
driven decades of research. However, recent technological and theoretical
advances have thrust open two lines of inquiry. The first is understanding
the combinatorial scale of the correlations that occur in natural and model
neural networks. It is well known that describing neural activity requires
pairwise statistical interactions -- but we do not yet understand when network
dynamics produce patterns of correlations that extend beyond this pairwise
description, when the pairwise descriptions will be complete, and what the
overall implications are for neural coding and signal processing.
The Principal Investigator will address these questions for a set of "canonical"
neural circuits, or motifs, and will build toward networks of gradually
increasing complexity in their dynamics and architecture. Further, extending
beyond intrinsic network dynamics, he will ask how these basic network properties
determine the ways in which patterns of synchrony can be controlled by external stimulation.
Answering these complementary questions requires synergies between methods of
stochastic processes, dynamical systems, and statistical inference.

How do how networked neurons work together to produce the brain's astonishing
computational ability? Such coordinated neural dynamics are characterized by
synchrony among different neurons. One prospect is that this coordinated
activity opens new channels for signal processing: there is a combinatorial
explosion in the number of possible multi-neuron patterns that can occur in
increasingly large networks. However, we only have the first hints at whether
and when these patterns systematically occur in the brain's networks, and what
information they might (or might not) carry. Shea-Brown will study the
fundamental properties of neural dynamics, connectivity, and noise that
determine the level and impact of multi-neuron synchrony in a series of
networks of gradually increasing complexity. He will use
interdisciplinary tools from both deterministic and statistical branches of
applied mathematics to understand how levels of synchrony are created,
destroyed, and manipulated by external stimulation. These findings will
contribute to experimental and clinical neuroscience: working in
collaboration with experimentalists, the investigator will make predictions for light stimuli
that evoke higher-order correlations in the retina, and for electrical stimuli
that suppress pathological synchrony in neurodegenerative disease. These
questions, as part of theoretical neuroscience -- an emerging field that is
rich in open questions and highly varied interdisciplinary techniques --
present a strong opportunity for recruiting, engaging, and training
undergraduates in the mathematical sciences. Shea-Brown will direct this opportunity
toward the underrepresented groups from which new scholars are most urgently
needed, through an integrated four-year research pathway for undergraduates.
This will be developed together with newly designed units in the computational
science and mathematical biology courses taught by the investigator.